Linking Science, Art, and Practice in Digital Sound

Computer Science (31)

This collaborative project between a liberal arts university and a performing
arts conservatory is developing curricular materials illustrating the
science and mathematics of digital sound using examples drawn from theater,
film, and music. It is engaging students' interest in science by enabling
them to explore connections between art and digital media by creating a
textbook supplemented with interactive on-line tutorials, worksheets, MATLAB
exercises, programming exercises, and application-based projects. The project
is creating modules that move from higher to lower levels of abstraction and
from concept to practice. It is making the curricular material accessible to
students of different backgrounds and teachers of a variety of courses in
computer science and production aspects of the performing arts. These
materials are being assessed through direct observation and questionnaires to
determine how students move between concept and practice and find better ways
to link the conceptual textbook material with art- and real-world projects.
Workshops are being held for college-level teachers of digital media from
computer science and art disciplines to refine and disseminate the curricular
material.